Collaborative Research: Imaging and Modeling Impact Generated Deformation at the Chicxulub Crater, Joint US/UK/Mexico Investigation and IODP Site Survey

Award is for a multichannel seismic survey across the offshore portions of the Chicxulub impact crater. The multichannel seismic survey will be added on to a funded British tomographic survey that will be conducted in the summer of 2003 aboard the R/V Maurice Ewing. The multichannel seismic survey will map features that cannot be constrained by the tomographic study, including the geometry of the peak ring, and the possible thrust boundary beneath the peak ring. The modeling effort, together with the multichannel seismic profiles will determine the approach direction of the impactor and constrain the angle of impact to with 10 degrees. The multichannel seismic profiles together with the tomographic data will complete the required site survey over two proposed IODP sites.